A Fundamental Component of Engineering Technology

To be successful in the electronics and robotics fields, students must understand the fundamental control devices used in modern industrial electrical systems. Through this project, a new industrial controls laboratory promotes curricular reform, allowing the presentation of concepts and applications in a setting more conducive to promoting "learning as an active process" as recommended by the National Science Educational Standards. Such a laboratory also directly responds to the needs of industrial clients who have participated actively in the redesign of the engineering technology program.